Scripps Institution of Oceanography - Shipboard Scientific Support Equipment

Scripps Institution of Oceanography (SIO) requests funds for Shipboard Scientific Support Equipment (SSSE) that is needed to carry out NSF-supported scientific research. Working within the collaborative framework of the University-National Oceanographic Laboratory System (UNOLS), the proposed equipment will be maintained by the SIO ship operations department for use by NSF-supported scientists from institutions nationwide who require these seagoing facilities. Equipment is requested for RV Sally Ride, a 238-foot, Navy-owned vessel built in 2014.

With this proposal, SIO provides technical descriptions and rationale for the acquisition of the following SSSE:

1) Replacement Foremast for R/V Sally Ride $229,000

Broader Impacts
The principal impact of the present proposal is under Merit Review Criterion 2 of the Proposal Guidelines (NSF 19-602). It provides infrastructure support for scientists to use the vessel and its shared-use instrumentation in support of their NSF-funded oceanographic research projects (which individually undergo separate review by the relevant research program of NSF). The acquisition, maintenance and operation of shared-use instrumentation allows NSF-funded researchers from any US university or lab access to working, calibrated instruments for their research, reducing the cost of that research, and expanding the base of potential researchers.